GLORIA Investigation of the Fastest Spreading Segment of the Global Seafloor Spreading System

9503624 Hey This renewal will support continued analysis of data collected to examine the structure of a section of the mid-ocean ridge system which is spreading at the fastest rates known. The results will provide insight into the formation of microplates and deformation of ocean crust, and the space-time evolution of ridge segments. ***